Operation of an Ocean Bottom Seismic Instrument Pool at Lamont-Doherty Earth Observatory for the Benefit of the Community

This project provides for the participation of Columbia University, Lamont Doherty Earth Observatory as part of the national Ocean-Bottom Instrument Pool. This Pool will provide ocean-bottom seismometers and ocean-bottom hydrophones to the academic community